Workshop on The Creation of Standard Zeolite Samples

ABSTRACT CTS-9422458 Mark Davis A workshop is organized and conducted to define standard reference materials and properties for zeolites. A formal proposal to the National Institute of Standards and Technology for establishment of these standards is prepared. Zeolites are widely used for several important industrial processes. They serve as detergents, separation agents, and catalysts. However, widely accepted standards are lacking, making definition of quality difficult.